Fostering Transfer From Open-Ended Exploration To Scientific Reasoning

This project will attempt to combine the excitement and interest students evince when allowed to interact with open-ended, exploratory computer models, with the structure and explicit pedagogy many require to succeed at linguistically oriented, paper-and-pencil tests. Using BioLogica, a software environment we have developed on a prior NSF grant, we will present students with a sequence of "web labs," or computer-based, guided investigations, that will introduce them to multi-level reasoning in the domain of genetics. The web labs will provide the students with challenges of increasing difficulty, monitoring their work, offering feedback and soliciting responses as appropriate. Each will present students with information and questions regarding situations or problems analogous to the ones they have just worked on, offering metacognitive prompts designed to promote transfer from the computer activities to a broader understanding of the underlying scientific concepts